Ultrasonic Evaluation of Delimination Defects at FRP/Concrete Interface

9800345 Ehsani Fiber Reinforced Composites (FRP) are fast becoming a viable new construction material. Perhaps the most suitable area of application for these materials is in the field of strengthening and rehabilitation of existing civil structures. Numerous field applications have demonstrated that FRPs can result in some 30% cost savings compared to conventional rehabilitation techniques. The success of the technique depends to great extend on the quality of the construction, and in particular, the epoxy joint which had to transfer the stresses from the FRP plate to the substrate. Consequently, there is a great need for development of Non-Destructive Evaluation (NDE) techniques which could detect any flaws or delaminations in the epoxy bond line. Such a system could not only be used to ensure quality of construction, but could also help with detection of any damage that may form during the life of the structure by environmental effects such as ultraviolet rays, moisture penetration, etc. The quality of rehabilitation will be monitored nondestructively by ultrasonic inspection of internal defects, voids and delaminations, when the specimen is not homogeneous, such as a composite layer that is to be used, evaluation of interfaces between two different materials or layers is a much harder job. It is specially difficult if the two interfaces are debonded or weakly bonded but are in close contact with each other forming what is called "kissing" or "slip" bonds. Hence for this applicaiton the Lamb wave scanning technique appears to be the superior technique. ***